GOALI: Regioselective Preparation of Azoles via S-to-NR Skeletal Editing

Dr. Mark Levin of the University of Chicago, in collaboration with scientists at Johnson & Johnson Innovative Medicine, will develop new chemical methods that would allow scientists to prepare important nitrogen-containing molecules called azoles with much greater precision and efficiency. Azoles are common building blocks in medicines, agrochemicals, and advanced materials, but current methods for making many azoles often produce unwanted mixtures that are difficult and wasteful to separate. This project would address that longstanding challenge by using a “molecular editing” strategy that selectively replaces sulfur atoms with nitrogen atoms to build the desired compounds in a more controlled manner. By enabling safer, more efficient, and less resource-intensive production of valuable chemical building blocks, this research advances innovation in advanced manufacturing. The resulting methods could accelerate the discovery and manufacturing of pharmaceuticals, crop-protection agents, and other functional materials important to human health and national competitiveness. Broader impacts of the project include training graduate and undergraduate students at the academic–industrial interface, creating networking opportunities for students, and establishing the Midwest Organic Synthesis Society (MOSS), a new seminar and outreach organization designed to connect students with scientists from academia and industry. The project would also generate publicly available educational materials and career-development programming focused on modern chemical technologies and emerging areas of pharmaceutical research.

Technically, the funded the project will investigate regioselective synthesis of pyrazoles, triazoles, imidazoles, and related azoles through sulfur-to-nitrogen skeletal editing of sulfur-containing heterocycles. Central to the work is the development and study of thiadiazine-S-oxide and thiatriazine intermediates that undergo selective carbon–nitrogen bond formation followed by extrusion of sulfur monoxide to afford regioisomerically pure azoles. The research will explore selective N-alkylation and N-arylation reactions using phase-transfer catalysis, Mitsunobu chemistry, nucleophilic aromatic substitution, and copper-catalyzed coupling reactions. Additional studies will expand the strategy to ring-fused azoles, peptide-relevant amino acid derivatives, and photochemical sulfur monoxide extrusion processes. Mechanistic investigations and high-throughput experimentation enabled through the academic–industrial collaboration will guide reagent and reaction design. Collectively, the anticipated results would establish a broadly useful platform for regioselective azole synthesis while deepening fundamental understanding of the reactivity of under-explored sulfur-containing heterocycles.